QSB: Development of an Integrated Biological and Computational Approach to Decipher Transcriptional Regulatory Networks in Saccharromyces Cerevisiae

The long range goal of this project is to develop an integrated biological and computational approach to decipher gene regulatory networks. This project combines discovery-based approaches to identify and characterize new regulatory networks with hypothesis-driven approaches in which transcriptional control by two regulatory factors important in galactose metabolism will be examined. The specific aims of this project are: (1) to temporally profile the global genetic and proteomic response to galactose; (2) to globally identify the elements of transcriptional networks important for galactose utilization; (3) to develop an advanced computational framework for integration, modeling, and prediction of transcriptional networks; and (4) to experimentally test the networks models predicted from these studies.